CEDAR: An Intensive Solar Minimum Study of the Mid-Latitude Ionosphere

This is a project to conduct an experimental campaign called CARMEN to study ionospheric structure and dynamics in the Caribbean. This 15 to 18 month long intensive study will use data obtained with optical and radar instruments at Arecibo, Puerto Rico, in addition to a digital ionosonde at the conjugate point in Argentina. The earth s ionosphere is characterized by a variety of storm-like processes that result in a very structured medium. These structures severely affect the propagation of radio signals from satellites to the ground and can disrupt civilian and military communications and positioning systems. The ultimate goal of this study is to understand the processes that lead to ionospheric irregularities during solar minimum conditions. Collaborators from many different institutions will participate in the campaign and students will be supported at both Cornell and the University of Puerto Rico at Mayaguez.